Shear Sensitivity of Bioluminescent Marine Cells

9730782 Latz This interdisciplinary project is to examine the shear sensitivity of marine dinoflagellates, one of the most shear-sensitive organisms known. Luminescent dinoflagellates respond essentially instantaneously to mechanical stimulation via a unique and easily monitored bioluminescent effector system. These plant-like cells will be used as a model system for investigating fundamental questions in sensory biology with important engineering applications. The main questions relating to the mechanosensory signal transduction pathway are: (1) what is the role of G proteins in signal transduction; (2) how is applied mechanical stress related to fluid shear stress and cell strain; and (3) how is shear sensitivity affected by the cytoskeleton? ***